SBIR Phase I: Developing an Indoor Method to Produce Morel Mushroom Fruiting Bodies

This Small Business Innovation Research (SBIR) Phase I project creates disability-friendly food production equipment for growing highly nutritious morel mushrooms. Creating equipment that is disability-friendly allows more work for an immensely underserved population and a greater employee base for farmers, who regularly need more employees than they can find. The project also focuses on farmers in both rural and urban food deserts, where nutritional needs aren’t being met. Leftover colonized agar media and fruiting bodies will be dehydrated and extracted into further nutritional supplementation. Morels and their mycelium are shown to be rich in nutrients and have many health benefits. Making the mushrooms easier for the general public to purchase consistently will improve the health and well-being of Americans. The higher supply of morel mushrooms will allow for their use in widespread nutritional supplements and a renaissance of mushroom cooking in the culinary world.

This project is based on a novel, self-contained method to grow fresh morel mushroom (M. esculenta) fruiting bodies on agar media using a single inoculation step. There are no existing commercial production methods that meet the market demand. The main supplier of fresh morels is through foraging, which is extremely labor intensive, ecologically destructive, and has a small window of procurement opportunity every year. This severely limits the availability of this incredibly nutritious and delicious food source. Two major technical hurdles must be overcome in order to bring this production method to market. The first hurdle is demonstrating microclimatic conditions for consistent production output. The project must identify a modified approach from the preliminary method in order to definitively determine appropriate microclimatic conditions. The second aim is to incorporate protective measures from adverse effects, such as the ongoing Trichoderma spp. epidemic which plagues mushroom farms worldwide. SBIR Phase I success will be measured by the ability to retain production output while producing morels with consistency of taste equal to or better than wild morels. Taste will be evaluated by a team of chefs who are experienced with their use.